Natural Science PRIDE: A Program to Promote, Recruit, Involve, Develop, and Employ Students in Mathematics and Computer Science

The S-STEM project at St. Norbert College is awarding scholarships to students pursuing mathematics and computer science degrees who demonstrate both academic potential and financial need. Scholars are being organized into an active learning community which is being supported by activities such as faculty mentoring, a seminar series, and research collaboration opportunities. The project is partnering with local businesses to facilitate internship and career placement.